U.S.-South Africa: Planning Visit to Discuss Multi- Disciplinary Center Approach on Environmental Problems

This award supports a planning visit by the Directors of the Institute for Environmental Studies at the University of Pennsylvania, Professor Irving M. Shapiro and Professor Robert Giegengack, to the University of Cape Town, South Africa. The purpose of the visit is to discuss the establishment of a Center for Environmental Studies at the university, which would collaborate with other universities and environmental research organizations in South Africa. The proposed center would focus on the identification and resolution of environmental problems that affect the social and material development of Africa. By linking students, faculty, research scientists, and communities in common studies, the center will promote multidisciplinary analysis of environmental problems and the dissemination of knowledge throughout the country. It is hoped that the center will develop an Africa-centered and world-recognized capacity for postgraduate studies of the environment that will stimulate a `call to action` for effective resource management in pursuit of sustainable development.